Gordon Research Conference on Space Plasma Physics; Wolfeboro, New Hampshire

This conference support grant will utilize funds to support subsistence and/or travel for invited speakers, discussion leaders, graduate students, and others who require financial assistance in order to attend. The biennial Gordon Conference in Space Plasma Physics addresses current topics in space physics research. This particular conference's theme is collisionless dissipation, which is common to much of the space physics environment and supports many current and future programs.